Enhancement of the Chemistry Curriculum by Replacement of anOutdated NMR Spectrometer with a Fourier Transform Spectrometer

A Fourier Transform NMR instrument is providing student access to a central instrument for chemistry analysis and providing hitherto unavailable laboratory experience with topics now covered in the curriculum including the important techniques of Carbon-13 NMR spectroscopy and Fourier Transform methods. The instrument is also supporting a new Biochemistry Program which is being developed. The instrument purchased is flexible enough to be used with the lower division curriculum, but with specifications which permit it to meet the demands of advanced courses in physical, analytical, organic, and biochemistry. The instrument is also being used to support senior research projects. The grantee is matching the award from non-Federal sources.